An International Workshop on Galeras Volcanic Complex, Pasto, Colombia; January 10-16, 1993

This Science in Developing Countries award will support an international workshop on Galeras Volcanic Complex, Colombia, to be held in Pasto, Colombia in August 1992. Organizers are Stanley Williams and Marta Lucia Calvache V. of Arizona State University and Jaime Romero L. of the Observatorio Volcanologico de Colombia-Sur in Pasto, Colombia. The workshop aims to synthesize state-of-the- art knowledge concerning Galeras, produce a preliminary working model of the volcanic system, and plan future research collaboration. During the last three years, seismic activity at Galeras has increased significantly. The researchers' prior work on the volcano's recent geology suggests that an explosive eruption is likely. In this workshop, participants will design new dimensions to ongoing research programs at Galeras and try to mitigate potential hazards by increasing basic knowledge before a disaster. If the eruption occurs before the workshop, the organizers will use it to integrate results and direct continuing research. Both the U.S. and Latin American participants will benefit from a timely exchange of information and from the opportunity to develop future collaborative projects.